CAREER: Hybrid Columns of Concrete and FRP

9625070 Mirmiran This is a CAREER Award. The research plan will focus on hybrid construction with concrete and fiber composites in systems with pseudo-ductile behavior with high stiffness and strength. The plan will include analytical and experimental components. The education plan will synergize the research results into the classroom teaching which will allow to the students and the faculty person to be at the peaks of knowledge in a specific topic. ***